Capillary Electrophoresis with Tandem Fourier-Transform MassSpectrometry for the Analysis of Biomolecule Mixtures

This award is made as the starter grant increment of Dr. Evan Williams' postdoctoral research fellowship. A combination of capillary zone electrophoresis and Fourier transform mass spectrometry will be used to develop methods for the analysis of complex biological mixtures at the attomole level. The research involves the construction of instrumentation to do the work, the development of experimental methodology to enhance sensitivity and minimize sample size, as well as the development of Hadamard transform methods which could lead to methods for rapid, simultaneous analyses. %%% This research will develop methods for analysis of very complex mixtures of biochemicals. Such techniques could have major impact on the early detection of disease and in forensic chemistry. The work is also important to basic research scientists who are studying metabolism and toxicity problems.